The Bulls-Eye Effect as a Probe of the Mass Density of the Universe

AST-0070702
Melott

This project has as its goal the development of a novel technique for measuring the mass density of the universe. Knowledge of the mass density (called Omega_m) is critical for understanding the "fate" of the universe (whether open or closed) in most contemporary cosmological models. Several methods are currently in use for measuring this very important cosmological parameter but all give slightly different results. The technique to be used in this research is completely independent of the other techniques in use. It will be based on a series of computer simulations, each using a different mass density, of the observed spatial distribution of galaxies. The results of these simulations will then be compared with the true galaxy distributions as measured in new, large-scale surveys such as the Sloan Digital Sky Survey and the Las Campanas Redshift Survey. This new technique should provide a good, independent check on our current knowledge of the universe and its evolution.

Funding for this project was provided by the NSF program for Extragalactic
Astronomy & Cosmology (AST/EXC).
***